Mathematical Sciences: Northeast Topology Conference; September 22-24, 1989

This award provides partial support for participants at the first Northeast Topology Seminar, mainly drawn from New York, New England, Ontario, New Jersey, and Pennsylvania. Principal speakers include D. R. Anderson (Syracuse), F. R. Cohen (Rochester), M. J. Hopkins (M.I.T.), W.-c. Hsiang (Princeton), E. K. Pedersen (McMaster), and M. G. Rothenberg (Chicago), emphasizing high dimensional topology and homotopy theory.